Structure and Function of Troponin and Myosin

The interaction of myosin (thick filaments) and actin (thin filaments) which results in muscle contraction is regulated by reversible binding of calcium ions to intracellular, regulatory proteins. Depending on the source of the muscle, the calcium- binding protein may be a subunit of myosin, troponin (associated with actin), or both acting in concert. The long term objective of the research is to elucidate the basic molecular mechanisms of the troponin-linked and myosin-linked calcium regulation in muscle. We will investigate the way in which calcium influences the interactions of the muscle regulatory proteins. The calcium- binding subunits, troponin C and myosin light chains, are homologous proteins. Our results will identify similarities and differences in the structures and interactions of these proteins which are indicative of fundamental common mechanisms as well as key specific differences which have led to functional specialization in the two regulatory systems. Our experimental approach is based on the use of intermolecular chemical crosslinking of the regulatory proteins. Mass spectrometry and protein chemistry techniques will be used to identify crosslinked amino acid residues in each protein. Site-directed mutagenesis will be used to be used to increase the range of possibilities for crosslinking and to further characterize the details of the interaction sites. %%% Muscle contraction is regulated by reversible binding of calcium ions to intracellular, regulatory proteins. Depending on the source of the muscle, the calcium-binding protein may be a subunit of myosin, troponin (associated with actin), or both acting in concert. The long term objective of the research is to elucidate the basic molecular mechanisms of the troponin-linked and myosin- linked calcium regulation in muscle. The calcium-binding subunits, troponin C and myosin light chains, are homologous proteins. This research will identify similarities and differences in the structures and interactions of these proteins which are indicative of fundamental common mechanisms as well as key specific differences which have led to functional specialization in the two regulatory systems. The experimental approach is based on the use of intermolecular chemical crosslinking of the regulatory proteins. Mass spectrometry and protein chemistry techniques will be used to identify crosslinked amino acid residues in each protein. Site- directed mutagenesis will be used to be used to increase the range of possibilities for crosslinking and to further characterize the details of the interaction sites.